Teaching Laser Physics in the Laboratory

9452214 Lin A few experiments will be developed to show students the inside structure of a laser, to introduce students to some fundamental principles in laser physics, to enhance their understanding of concepts learned from theoretical courses and other labs, and to stimulate their interest in science and engineering.